Genetic Regulation of the Threonine Operon of Escherichia Coli

Genetic and biochemical studies have shown that specific sites in bacterial and bacteriophage DNA encode signals for transcription termination. These sites have been found at the ends of genes, between cistrons within an operon and even within gene coding regions of operons. It has also become clear that transcription terminators play an important regulatory role in gene expression. One objective of this research is to gain an understanding of the molecular events involved in transcription termination at the attenuator site in the threonine (thr) operon of Escherichia coli. A systematic analysis will be undertaken of the sequence and structural features of the attenuator that are necessary for transcription termination. A second objective of this study is to examine transcriptional pausing at the pause site in the thr regulatory region and at the attenuator. Variations of the standard footprinting technique will be used to probe both RNA and DNA in paused complexes. A third objective of this work is to examine the stability of the secondary RNA structures encoded by wild-type and mutant attenuators. It has been proposed that the stability of the secondary RNA structure is important for transcription termination. RNA will be isolated in quantities sufficient to measure thermal denaturation profiles. This will permit comparison of observed and calculated Tm values. It will also be be possible to determine if the stability of secondary RNA structure is proportional to termination efficiency. The last objective of the proposal is to isolate and map mutations in genes that encode proteins that participate in transcription termination in vivo. Mutants will be isolated that increase transcriptional readthrough at rho-independent terminators. Characterization of these mutants will provide information on which gene products are involved in transcription termination in vivo.